Scholarships In Mathematics and Computer Science

The Scholarships in Mathematics and Computer Science (SIMACS) program is awarding scholarships to qualified students majoring in the relevant disciplines. The scholarships are increasing the number of women enrolled in computing science and mathematics degree programs. Selection of the scholars is based
leadership and school and/or community involvement in addition to academic ability. Bi-weekly
group meetings of scholars and faculty mentors, as well as individual meetings scheduled in the alternate
weeks serve to ease the transition from high school to college and from junior college to the four year institution.